International Federation of Automatic Control 14th World Congress, Beijing, People's Republic of China of China

This project involves the encouraging leading U.S. academic researchers to participate inthe International Federation of Automatic Control (IFAC) 1999 Congress. This proposal stresses and emphasis on using the proposed travel grants to promote involvement of junior faculty and graduate students with a clear intention to pursue a career in academic/higher education. The IFAC Congress is held only every three years since 1960. This Congress provides a unique opportunity for internationalexchangr of ideas, as at national Control conferences typically 70% of the technical papers are contributed by US researchers, compared with only 11% at this congress. This year's congress, which is being held in Beijing China, provides a unique forum for the international control community to review the impact of automation during the past century and to look forward to needs and developments for the century to come.